CAREER:Three Dimensional Cell Characterization

1254484
Huang

Cell properties have been extensively examined in two-dimensions (2D), yielding fruitful information
regarding focal adhesions, migration, the establishment of polarity, traction forces and
mechanotransductive responses. However, with few exceptions, most cells in vivo exist in a threedimensional
(3D) environment, where their behavior is considerably different compared to when they are
plated on a petri dish. Not only are there significant geometric differences, but there are also
omnidirectional cell-cell interactions as well as cell-matrix interactions. As disease and tissue engineering
research advance, it is imperative that cellular behavior and properties are established in detail. However,
achieving this goal has been slow, in a large part because imaging and otherwise probing cells embedded
within other cells and/or matrices is difficult due to scattering and inaccessibility. Thus there is a need for
transforming techniques to derive information from three-dimensional cellular constructs.

The scientific objectives of this proposal are (1) to design and implement a microrheometer to
characterize cellular properties that can remove out-of-plane noise and perform three-dimensional
tracking, (2) to use the microrheometer to assess changes in cell rheological properties under resting
conditions as well as under mechanical stimuli, in a variety of 2D and 3D environments, and (3) to model
2D and 3D rheological changes using a novel 9-parameter computational model based on a Monte Carlo
simulation which will be used to interpret the results from the experimental parts of the project.
Preliminary work demonstrates that cell behavior in layered 2D arrangements are already more
complex than simple 2D plating can predict. These results further demonstrate the effectiveness of new
techniques for acquiring microrheological measurements in a variety of conditions. The next logical step
is to deploy more advanced techniques to 3D, and to carefully examine cell behavior and response in
more realistic environments, and to create computational models to help interpret the results. Thus, this
project will provide the groundwork for years of research in basic cell biomechanics, tissue engineering,
as well as imaging techniques that may rely on these measurements for diagnoses or treatments.

Intellectual Merit: The driving goal of this project is to characterize cells in threedimensional
environments by designing advanced imaging setups, coupled with computational
models to help interpret the results. Because 3D is the next major area of cell-based research, and
because tools for examining biomechanics and mechanotransduction are currently lacking for 3D
experimentation, the work proposed here will help advance the field of biomechanics, tissue engineering
and imaging. Ultimately, a vastly improved and more realistic model of cell behavior in vivo will be
established and better models of cell regulation and physiology can be created.

The overall merit of this work lies in the ability to precisely characterize cell properties under
realistic but controlled conditions, where one can vary the extracellular matrix constituents, the
mechanical stresses acting on the cells, and the degree of cell-cell interactions. Thus, these results can be
transformative for the field of cell mechanics and mechanotransduction, which themselves are relevant for
a broad range of other fields. Because of the fast development of 3D tissue-engineered constructs and the
need for characterizing cell properties, this proposal seeks to fill a large gap in current knowledge. For
example, is it true that in response to mechanical stimuli, cells first fluidize their interior to permit
remodeling? Do cells plated in 3D exhibit different anisotropy from cells plated in 2D? Does altering the
adhesive ligand engaged by one layer of cells affect a second layer of cells plated on top of the first layer?
This proposal seeks to answer these, and other, questions.

Broader Impact: Because of the breadth of this project, there is considerable opportunity for
having broader impacts on many aspects of biomedical engineering education and outreach. Because
knowledge of contemporary biomedical engineering techniques and stem cell biology are not yet widely
available to educational programs and the public at large, part of this project is dedicated to outreach.
This outreach program is based on expanding a remote lab program by creating freely available videos
along the line of the "Minute Physics" videos, but with a focus on biomedical engineering topics and
techniques, posted to YouTube and other high-traffic video sites. Additionally, a broader selection of
undergraduate students will be provided the opportunities to engage in laboratory research. Finally,
courses in tissue and molecular engineering and biomechanics will be enhanced by the topics explored in
this proposal, with plans for supplementary material stemming from a textbook that is currently in press.